A Shape Optimization Approach Based on Natural Design Variables and Shape Functions

In many engineering products, the shape of a design can have considerable affect on performance. The performance of dams, transmission towers, fillets, aircraft, and automobiles are all affected by their geometric shape. Shape optimal design can be applied to any structures for which a mathematical model exists. The basic approach in shape optimal design is to choose a set of design variables that defines the shape of the structure. Changes in the geometric structure can then be related via changes in the finite-element mesh to changes in the design variables. The Principal Investigators propose to develop a new approach for shape optimization of structures. The design variables will be represented as fictitious loads on the structure. The displacements produced by these fictitious loads are added to the finite-element mesh to obtain a new shape. This new approach is computationally superior to the standard approaches and allows the possibility of physical interpretation of optimality criteria for a class of problems. This research is a joint research project with Subramaniam Rajan at Arizona State University who is being funded separately under grant DMC-8614205.